Optimal Triangulations for Scientific Computing

OPTIMAL TRIANGULATIONS FOR SCIENTIFIC COMPUTING

ABSTRACT FOR PROPOSAL#0830209

Recent progress in scientific computing motivates new triangulation
problems. As new numerical methods being developed, new geometric
constraint formulations that are key in the accuracy and convergence
analysis of these methods emerge. In this two-year project, practical
and theoretically sound algorithmic solutions for a number of
triangulation problems will be studied. More importantly, new software
based on these solutions will be developed and made available to the
public. In particular, first ever software for computing acute and
non-obtuse triangulation problems will be deployed. Such software are
sought for in scientific computing as a geometric tool to be coupled
with the widely used finite volume methods as well as in graphics
applications. Practical algorithmic solutions for other triangulation
problems such as minimum weight Steiner triangulations which is
expected to find use in networking applications, will also be studied.
In addition, parallelization of the aformentioned algorithmic
solutions will be studied within this project. The project will ensure
its broader impact through distribution and integration of new robust
software. Project personnel consists of one graduate student that will
be selected among underrepresented groups in engineering.
____________________________________________